High-Quality Tests for Synchronous Sequential Circuits

The goal of this project is to develop test procedures for synchronous sequential circuits to produce high quality solutions taking into account the size and complexity of modern circuits. Quality is measured by the fault coverage, the defect coverage, and the test sequence length. To handle size and complexity, high quality solutions are being derived using limited run time and memory. New heuristics and techniques for test generation, test compaction and design-for-testability to address this need are being explored.